High-Performance Network Architecture with Speculative Scheduling for Globally Active Congestion Control

Project Abstract:

In this research, we develop efficient congestion control
mechanisms for high-performance interconnection networks used in
multiprocessors, distributed network-based multicomputer clusters,
storage systems, and IP router fabrics. Techniques will be
explored that allow rapid advancement of packets directly involved
in network congestion. Our approach is based on adding minimal
intelligence to routers and network interfaces---in the form of
speculative scheduling capability---such that resources are maximally
utilized while packets are efficiently routed. This can be done by
more effectively steering packets around congested areas and by more
precisely detecting and handling potential deadlock situations arising
from cyclically-correlated congestion on a closed set of resources.
A by-product is that global expansion of congestion trees/cycles which
can seriously degrade performance is prevented. In addition to
developing formal theoretical support for the approach, detailed
evaluations will be carried out through modeling and simulation.

The significance of this research is two-fold. First, by effectively
dispersing packets out of congested regions of the network, higher
sustained throughput and lower, more predictable latency can be
achieved. That is, more data can be sent and received through the
network over a given period of time, and the time it takes for the
network to deliver the data can be reduced, with less variability.
Second, by efficiently resolving deadlock in the network, the
routing of packets is guaranteed never to come to a halt. These
important factors allow computer applications which require a great
amount of communication between system components to run much
faster and dependably.